2024 Alan T. Waterman Award

The National Science Foundation (NSF) has named Dr. Katrina Claw as the 2024 recipient of its Alan T. Waterman Award. This award is NSF's highest honor that annually recognizes an outstanding young researcher and funds his or her research in any field of science or engineering. This year's awardee will receive a $1 million grant over a five-year period for further advanced study in her field.

Dr. Katrina Claw is an assistant professor in biomedical informatics at the University of Colorado, Anschutz Medical Campus and director of the Precision Health and Genomics: Indigenous Mentoring and Ethics program. As a member of the Navajo Nation, Claw is dedicated to collaborative and community-based genetic research that produces better science and ethically benefits all participants.

Dr. Claw is recognized for her outstanding contributions to pharmacogenetics and for demonstrating the importance of understanding the intersection of genetic variation in metabolism and social determinants in health. She is also recognized for her important contributions to bioethical approaches in research and for the development of an Indigenous-driven framework for including Native Americans in genomic research, as both participants and researchers.